Optical Measurement and Analysis Laboratory

An optical measurement and analysis laboratory is being instrumented in support of the upper-level curriculum in an Engineering Physics Program. The apparatus supplements basic instrumentation in a new laboratory facility.NSF grant funds are being matched with funds from non-federal sources.